CAREER: Untrusted Computing Base: Detecting and Removing Malicious Hardware

Computer systems security is an arms race between defenders and
attackers that has mainly been confined to software
technologies. Increases in the complexity of hardware and the rising
number of transistors per chip have created opportunities for
hardware-based security threats. Among the most pernicious are
malicious hardware footholds inserted at design time, which an
attacker can use as the basis of a computer system attack.

This project explores of the feasibility of foothold attacks and a
fundamental design-time methodology for defending against them.
First, this project looks at techniques for highlighting potentially
malicious circuits in a design automatically. The basic algorithm,
called dead circuit identification (DCI), analyzes hardware
description language source code and dynamic execution traces of
design verification tests to identify suspicious circuitry whose
results do not impact the computation.

The second aspect of this project is a system for removing suspicious
circuits from a design automatically. The dead circuit elimination
(DCE) tool removes suspicious circuits from a design by pushing
potentially malicious logic up to a higher layer where it can be
analyzed in more detail at runtime.

The third aspect of this project is a new technique for generating
test cases and perturbing existing test cases to search specifically
for potentially malicious circuits.

This project provides a pathway to detection and defense against
security risks from hardware comprising attacks, making the enormous
disruptions possible with such attacks far more difficult than today.